Ordering Processes in Porous Media

9312596 Chakrabarti This proposal involves the analysis, by simulation methods, of phase transitions within random porous media. In particular, the phase separation of binary liquid mixtures and the isotropic to nematic liquid crystal phase transition will be studied. Comparison will be made to experimental results and to simple theoretical models. The porous medium will be modelled so that it has an interconnected and tortuous structure resembling Vycor glass (a common experimental medium). The 3D simulation methods to be used are a) Monte Carlo to study the equilibrium conditions and b) Numerical solution of the time dependent field equations to study the kinetics of the ordering processes. These are lattice models and their solutions will be implemented on the parallel architecture of the Connection Machine. %%% Porous media have a profound effect upon the phase transitions of systems contained within them. In this proposal, the phase separation of two component liquids and the isotropic (molecular axes randomly oriented) to nematic (melecular axes aligned) transition of liquid crystals will be studied by computer simulation. Although significant experimental and pure-theory work have been performed here, little simulational work has been done. The present proposal seeks to ask (and answer) specific questions which neither experiment nor theory can hope to answer alone. The work will involve the numerical solution of model liquids and liquid crystals trapped within a model porous medium designed to represent the tortous and interconnected structure of Vycor glass- the principal experimental medium. The simulations will be performed on a parallel architecture computer. This work has significant relevance to our undertsanding of processes occuring within rocks or within catalysts. ***